Influence of Boolean Functions and Gibbs Measures on Trees: Foundations and Applications

The investigator studies influences of
boolean functions using Gaussian Hilbert spaces.
The investigator is interested in particular in problems
arising in the theory of social choice, in hardness of approximation and
in learning theory. The investigator further studies a number of inference
algorithms on graphical models using techniques from probability and
statistical physics in general and the theory of Gibbs measures
on trees in particular. These algorithms are used for phylogenetic
inference, for computing marginals in Markov random fields and for solving
satisfiability problems.

In the first topic the investigator studies questions like: ``How do
we design a reliable voting scheme? What is the effect of error in
voting machines on the outcome of a vote?''. The same mathematical
questions are also important in understanding
theoretical questions arising in high-performance computing, in
particular the existence of efficient algorithms for approximately
solving ``hard'' problems. In the second topic, the investigator is
motivated by questions on ancestral relationship that are central in
modern biological and medical research, and in problems of
high-dimensional statistical inference that play an important role in
expert systems and data-mining.